SGER: Microfabricated Microneedles: Feasibility Studies of Transdermal Insulin Delivery

9813321
Prausnitz
The goal of this proposed research is to test a novel approach to transdermal drug delivery involving the use of standard microfabrication techniques to etch arrays of micron-size needles into silicon. The design of microneedles, which painlessly permeabilize the skin, is based on an understanding of skin anatomy. Microneedles, which penetrate the skin a little more than 10-15 microns, should provide transport pathways across the stratum corneum, but do so painlessly since the microneedles do not reach the nerves found in deeper tissue. To adapt this technilogy for transdermal drug delivery, the investigator proposes creating three-dimensional arrays of sharp-tipped microneedles on the order of 100 microns in length. Because the skin surface is not flat, the full length of these microneedles will not penetrate the skin. The microfabrication technique can be modified to make longer or shorter needles as required for painless delivery.